STIMULATE: Generating Coherent Summaries of On-Line Documents: Combining Statistical and Symbolic Techniques

This project proposes a multi-level process of summarization featuring: (1) integration of knowledge about a document derived with both statistical and symbolic techniques; (2) the use of language generation for reformulating this information into both indicative and informative summaries; (3) summarization across sets of related articles; and (4) development of techniques for domain independent summarization. The proposed research comprises both document analysis and summary generation. Document analysis involves segmenting a document into topics, using statistical techniques to identify key content within each section, and constructing a lexical semantic representation for use by the summary generator. Generation focuses on integration of relevant information from several data sources, on presentation of contrasting information from the input articles, and on the use of planning operators to combine information from the separate representations into a single concise text. The research includes evaluation techniques for measuring both coverage and robustness of the analyzer and generator, including conceptual and linguistic knowledge. Through collaboration with Columbia's Center for Research on Information Access, the proposed research on dynamically generated, coherent summarization across domains will ultimately be part of a digital library interface that filters documents according to a user's interests and needs.